Changes in Insect Epithelial Metabolism and Active Ion Transport

9407313 Chamberlin Most people are aware of the dramatic transformation that takes place as a larval lepidopteran (caterpillar) changes to a pupa (chrysalis or cocoon) and then to an adult (moth or butterfly). This remodeling of the insect has inspired a great deal of research on the developmental changes in epidermis. On the other hand, changes in the physiology and metabolism of internal tissues during insect growth and development are not well-understood. The proposed research will reveal changes in the functioning of one such tissue, the midgut, during larval growth, molting and metamorphosis. The insect to be studied is the tobacco hornworm (Manduca sexta). This caterpillar is essentially an "eating machine" that consumes large quantities of food to support its phenomenal growth rate. During the first 16 days of larval (caterpillar) life, the insect increases in size nearly 10,000-fold. This rapid growth rate is due, in part, to the functioning of its large midgut which digests and absorbs the ingested food. The midgut also engages in high rates of active ion transport and it is this process that is the focus of the proposed research. During larval growth, M. sexta molts four times before it metamorphoses into a pupa. Prior to each molt the gut is purged and during the molting process new cells are added to the midgut. The proposed research will determine whether midgut ion transport changes as the larva grows and whether the midgut temporarily ceases to engage in active ion transport during the molting process. During the fifth and final larval stage, the large larval midgut is destroyed and replaced by a smaller pupal epithelium. The PI has demonstrated that midgut active ion transport is greatly diminished in the last half of this period. The proposed research will expand upon this work of Chamberlin by measuring active ion transport across midgut just after the molt to the fifth stage and at several time points during the subsequent days . These studies will precisely determine when, in the metamorphosis of the insect, active ion transport declines. The energy for active ion transport is supplied by aerobic metabolism and therefore changes in midgut metabolism may affect active ion transport. The metabolic organization of the midgut during larval growth and development will be determined by measuring metabolite levels, maximal activities of key metabolic enzymes, and the respiration of isolated mitochondria, the organelle responsible for providing most of the energy for active ion transport. These studies on midgut ion transport and metabolism will elucidate the functional changes in an internal tissue during insect growth and development. Since molting and metamorphosis are processes common to all insects, the proposed research will provide fundamental information pertinent to understanding the physiology of all insects. ***